Sparse Matrix Algorithms and their Application to Dual Active Set Techniques in Optimization

Davis, Timothy
University of Florida
0203270

The focus of this project is the development of innovative library-quality software and under-
lying mathematics for dual active set techniques in optimization.The dual active set algorithm
(DASA)was .rst introduced in the context of state constrained control problems,and later in the
context of constrained mathematical programs.For linear or quadratic programming,each step of
the algorithm is equivalent to solving a linear system of equations,and in successive steps,there
is a small rank change in the matrix corresponding to the change in the active set.Numerical
experience has shown that the dual active set framework is an extremely e .cient approach for
solving some broad classes of optimization problems,including problems in optimal control and
quadratic network optimization.A version of the algorithm targeted to linear programming has
already solved some LPs that other state-of-the-art packages are unable to solve.We will develop
a variety of sparse matrix techniques,which have broad applicability,and which provide,in par-
ticular,the numerical foundation for DASA.Each technique will be developed into library-quality
software and made widely available.These include: